Collision Processes and the Kinetic Theory of Polymers, Suspensions and Multicomponent Solutions

Professor John Dahler is supported by a grant from the Theoretical and Computational Chemistry Program to perform theoretical studies in five major areas: 1) theory of collodial dispersions; 2) chemical reactions in small molecule fluids; 3) polymer-related research; 4) transport and relaxation in fluids; and 5) topics in collision theory. He will use formal theory supplemented by computer simulations to study transport, relaxation and chemical reactions in model fluid systems including polymers. %%% Since most chemical reactions occur in solvent media in the liquid state, it is of key importance to understand the influence the solvent exerts on the reactant solutes. There are a number of molecular interactions which occur between the solute and the solvent, and many of them can be modeled using a continuum rather than a discrete molecular model for the solvent. Dahler's research focusses on theoretical models for transport of solute molecules, including polymers, in a viscous continuum medium.